Collaborative Research: Integrated Parameter and Control Design

Project Summary
Motivated by design problems i anotechnology and by key theoretical problems of interest,
we consider a paradigm whereby the plant description depends on one or several parameters that
are subject to design.We propose a general framework for I tegrated Parameter and Controller
(IPC)design that allows multiple performance requirements.We propose to address the problem
of designing these parameters in conjunction with the feedback controller i order to achieve one or
more objectives.We then propose to address and solve the underlying optimization problem.The
theoretical underpinnings will rely o ew results in the non-convex optimization literature that
utilize convex relaxation i order to get global optimal solutions.The potential of our approach
to yield e .ective solutions to the resulting problems is demonstrated by our recent work that
applies the proposed methods to the robust synthesis problem in 1 giving the only global optimal
solution to this important problem.Aside from its contribution to the theory of control design,
the IPC design tools to be developed will be used to address several practical problems where the
simultaneous parameter and controller design can have a large and measurable impact.Speci .cally,
we will address a signi .cant nanotechnology design problem i volving ultra-high resolution micro-
cantilevers.This problem will take adva tage of existing expertise i the laboratory of the PIs and
will be conducted i close collaboration with the relevant industry.Based o the interdisciplinary
tools eeded for IPC design theory,we also address educational goals that are made possible by
the proposed research.
The intellectual merit of this proposal stems from the novel approach for a well recognized
unsolved problem of integrated parameter and controller (IPC)design.The proposal will contribute
signi .cantly to optimization based methodologies in control theory solving hitherto unaddressed
problems that are of importance for practical control design.The proposal lays particular emphasis
on applying the theory developed to micro-cantilever based technologies in the context of IPC
design.The theoretical paradigm is well suited and timely for furthering this technology.
Apart from the theoretical impact the related technology to be developed will be applicable
to practical problems i the two hundred million dollar scanning probe industry.The PIs have
signi .cant collaboration with industry and the technical knowhow developed will be guided and
transferred e .ectively to the industry.E .ort will be placed on integrating the software developed
on a typical Matlab platform.This will enable wide use of the tools developed by the related
communities.The main topic of the proposal provides a unique opportunity to expose the student
to the importance of plant structure that facilitates good overall plant-controller performance.A
novel course that builds o the ideas and results of this project to motivate the general philosophy
and techniques of integrated parameter and control design will be developed.
1